Parity Violating Electron Scattering at Jefferson Lab

The members of Louisiana Tech University's Center for Applied Physics
Studies (CAPS) are deeply involved in the current and future parity
violation experiments at Jefferson lab. The Group's primary experimental
involvements are the study of the substructure of the proton as members
of the G0 experiment, and testing the basic theory of
modern physics, the Standard Model, as members of the newly approved
Qweak experiment. They are also developing their own scientific program
as spokespersons for the E01-115 experiment which will measure the
parity violating asymmetry in the reaction when the proton is excited
into its first resonant state, the Delta. The experiment will be
performed using the G0 apparatus in its backward angle mode, and will
probe an important component of the proton's structure, a quantity known
as the axial vector transition form factor, inaccessible in other
reactions. This form factor measures the contribution of the proton's
intrinsic spin to the dynamics of this transition. To facilitate the
backward angle measurements for both the G0 elastic and N --> Delta
experiments, Louisiana Tech is working on the design, installation, and
testing of the Cryostat Exit Detectors (CED's) which also includes
development of the associated signal processing electronics.
Commissioning for the G0 forward angle measurements has been completed,
and the next set of measurements is scheduled to be run in October of
2003. The backward angle measurements are expected to start early in 2005.

The Group has taken on a crucial role in the Qweak experiment which will
search for physics beyond the standard model by measuring the proton's
weak charge. Since the inception of the Qweak experiment,
the CAPS Group has been working on the design of major components and
attributes of the spectrometer and detector systems. The Group's
responsibilities for the upcoming experiment will be the design,
testing, construction, and installation of a component of the forward
tracking system which will play a crucial role in measuring the
kinematics and background of the experiment. These new detectors will be
based on the innovative technology of Gas Electron Multiplication (GEMs)
which have been recently developed at CERN. To continue Louisiana Tech's
program of parity violation measurements, the group submitted an Letter
of Intent to the JLab PAC to extend its own program of measurements of
the the parity violating asymmetry in the N --> Delta transition at
forward angles. This experiment will measure a fundamental coupling
constant of dynamic theories of the weak interaction of hadrons, and
will also test symmetry breaking mechanisms which take place at higher
energies.

The involvement of CAPS in modern experiments is not unnoticed in North
Louisiana. It is motivation and opportunity for students at all levels
in this region to participate in state of the art science. It also
provides an opportunity to involve local high school teachers in
forefront science and, through their involvement, spread modern science
and technology even further into the local student population. This
component of the CAPS program is considered as important as their
scientific contributions.